Laser Spectroscopy in Advanced Chemistry, Physics, and Biology Laboratories

Moravian College seeks to add laser fluorescence and laser Raman spectroscopy experiments to all three science disciplines: biology, chemistry, and physics. Through this project science majors will be introduced to the theory and practice of laser fluorescence and laser Raman spectroscopy, and will perform experiments in which these techniques are applied to problems within their discipline. Novel experiments are proposed in which laser Raman spectroscopy is used to study liquid C02 and the structure of the enzyme lysozyme. Novel extensions to established experiments are proposed in which laser fluorescence spectroscopy is used to measure riboflavin in milk, and to study the chemiluminescence of luminol. In addition, a novel experiment involving LED's as detectors of laser radiation is proposed for Solid State Physics. The equipment in this proposal will allow Moravian College to assemble a laser spectroscopy system capable of performing a wide variety of experiments in physical chemistry, analytical chemistry, modern physics, physical optics, biochemistry, and molecular biology.